Presynaptic Ca2+ Dynamics, Ca2+ Buffers and the Mechanisms of Facilitation

Using computational modeling, the investigator studies the
spatiotemporal dynamics of intracellular calcium influx, diffusion
and buffering in a synaptic terminal. The particular phenomenon
explored by the investigator is the short-term facilitation of
synaptic response, that is, the transient increase in synaptic
strength elicited with just a few action potentials, and decaying
on time scales of tens to hundreds of milliseconds. Facilitation
is observed in a wide variety of systems, and must play an
important role in neural dynamics and information processing.
Although facilitation is known to depend on the presynaptic
accumulation of residual calcium, its precise mechanisms are still
under debate. The investigator focuses on the role of endogenous
calcium buffers in several different mechanisms previously
proposed to explain facilitation. Among such mechanisms is buffer
saturation, recently shown experimentally to underlie facilitation
at certain central synapses, and a facilitation model relying on
both free and bound residual calcium. The study concentrates on
two model systems that have been widely used to explore the
mechanisms of synaptic transmission: the crayfish neuromuscular
junction and the auditory calyx of Held synapse. The abundance of
experimental data obtained at these synapses allows detailed
modeling of the calcium-secretion coupling. One of the main goals
of this study is to explore how variations in endogenous buffering
characteristics affect the spatiotemporal calcium concentration
profile during trains of action potentials. This in turn helps in
elucidating the mechanisms of facilitation and in ascertaining the
role of calcium buffers in these and other synapses. Another
objective of this work is to estimate the properties of endogenous
buffers at the crayfish NMJ and at the calyx of Held. A modeling
approach is indispensable in this respect: apart from the over-all
buffering capacity, the specific buffering properties are
inaccessible to direct measurement at most synapses.

The investigator applies computational tools to the study of
a fundamental biological process, that of the movement of calcium
ions inside a cell. It is known that calcium regulates a vast
number of crucial biological events, such as gene transcription,
muscle contraction, immune system response, and many others. In
order to understand how a single element can regulate such a
diverse set of biological reactions, it is necessary to know in
detail how calcium concentration is controlled inside a cell.
This is particularly important for a better understanding of
synaptic transmission, which is at the center of the
investigator's work. In synaptic transmission, the entry of
calcium into the synapse causes the release of a neurotransmitter
chemical, binding of which to the receptors of the neighboring
neuron allows the electric activity to be transmitted from one
cell to the next. This is the fundamental process of
communication between neurons in the nervous system. It is
interesting that the strength of the synaptic connection between
two neurons does not remain the same, but is constantly changing.
The investigator explores how the accumulation of calcium causes
some synapses to temporarily increase (facilitate) their strength.
Along with other forms of synaptic change (termed synaptic
plasticity), such facilitation must play an important role in the
functioning of the nervous system. Apart from the immediate goal
of further elucidating the synaptic transmission mechanisms, this
study of intracellular calcium dynamics helps to shed light on
other important biological processes that are also controlled by
calcium. Finally, this work contributes to the widening of the
use of computational methods in biosciences, which is necessary in
order to maintain the current rapid progress in biology.